Meeting: Differentiation of Normal and Neoplastic Cells -5thMeeting International Society of Differentiation, Co-sponsorRED Committee, University of Colorado, August 3-7, 1987

Support is requested for travel for participants to attend the 5th Meeting of the International Society of Differentiation: "Differentiation of Normal and Neoplastic Cells" to be held at the University of Colorado, August 3-7, 1987. The meeting is aimed at bringing together developmental biologists and oncologists. Topics of common interest will be presented in lectures and workshops, with time for discussion of posters provided. Emphasis will be placed on genetics, including instability of the genome, imprinting of the genome, oncogenes, transgenics, and the nucleocytoplasmic interaction. Teratomas, leukemia, neuroblastoma, and tumors of the central nervous system as models of neoplastic development will be discussed in relationship to the development of their normal lineages and to growth factors. Metastasis and cell migration will be discussed. This meeting is an unusual one in that it brings together two groups of scientists whose interactions are not ongoing. Much of the current work in development and differentiation is important to oncologists. In addition some of the new cancer therapies are raising basic questions on the processes of normal development.